UIC-ALL Learn Mathematics

9550061 David Page The All Learn Mathematics project is a three-year project to improve the mathematical understanding and the classroom pedagogy of middle-grades teachers of mathematics in Chicago Public Schools, grades 5-8. The project will involve 500 classroom teachers and provide 100 hours of enhancement for each teacher over two years in eight summer institute days, monthly after school sessions, and project staff working in the classroom. Teachers will work in cadres of fifty teachers to build collaborative networks in addition to the specific enhancement. The program will assist teachers and administrators in building parental support and a students helping students environment in the school. The project will target schools in the Chicago Systemic Initiative and develop cadres of 50 teachers in each of Chicago's ten subdistricts. The project is funded at $1,932,417 with cost-sharing at $1,016,267 or 53% primarily from the local schools in the Chicago school-based structure.